Problem-Specific Programming Environments for Computational Science: Instrumentation Acquisition and Development

9413532 Conery This award is for the purchase of a parallel computer to do research in Problem Specific Programming Environments (PSPE). These environments will be built to use domain specific information in order to aid the scientist developing application programs for that area. The three PSPEs to be experimented with on this parallel computer are: Computation of the electronic structure of superconductors; simulation of mutations over generations; and constraint-based computations in molecular evolution. All of these domains are computation intensive needing the power of a parallel computer. ***